Clavius Scholars Program

Twenty-two academically talented and financially needy students majoring in biology, chemistry, computer science, mathematics or physics are being awarded four-year scholarships. An initial cohort of six students will be followed by a second cohort of sixteen. Five students chosen on the basis of a combination of greater unmet need and academic qualifications will be receiving annual scholarships of $7800; all others will be receiving $5206 annually.

Two-day faculty workshops are being held during both the first and second summers of the project. The workshops are designed to build closer ties among the participating faculty representing multiple disciplines. During the first year, the scholars will be attending a seminar series focusing on the high school to college transition and highlighting opportunities in mathematics and the sciences. Interdisciplinary seminars and student-run discussions will be held throughout the second and subsequent years.